Methyl Group Reduction to Methane

Six unusual coenzymes (methanofuran, tetrahydromethanopterin, coenzyme M. nickle tetrapyrrole F430, deazaflavin F420, and 7- mercaptoheptanolythreonine phosphate) so far have been discovered to be required for the reduction of carbon dioxide the methane. The present project continue studies on the terminal reactions of this process, methyl group transfer and reduction to methane. The protein known as component C is now clearly established as the methylreductase (MR). Special interests are: How does the cell maintain MR in the active state? %%% Methanogenic bacteria (methanogens) are archaebacteria and represent an ancient divergence in evolution. An interesting aspect of this divergence is that the biochemistry of methanogenesis has remained isolated in the methanogens, a characteristic not shared by other living things. The uniqueness of this biochemistry is dramatically shown by the six unusual coenzymes that so far have been discovered to be required for the reduction of carbon dioxide to methane. These studies are original and significant.